Student support for summer school on lattice QCD

Proposal ID 0653226 ?Date December 6, 2006 ?The proposal requests partial
support for young physicists (graduate students and recent Ph.D.) to attend a summer
school on “Lattice QCD and its applications” to be held at the Institute for Nuclear
Theory at the University of Washington Aug. 8-28 2007. The school will provide a
comprehensive introduction to the methods and applications of lattice QCD. The INT
will provide administrative support and the expenses of the lecturers, organizers and
some students. This proposal is to provide support for roughly 10 additional students.
The broader impacts are that the school presents an excellent opportunity for young
students and physicists to be brought up to speed on the latest theoretical and
numerical issues in Lattice Gauge Theory. A special effort will be made to attract
women and minority students. There will also be evening talks by students that will
enable students to get practice in making presentations to their peers.